Oceanographic Instrumentation

0201961
Tesh
This award to Skidaway Institute of Oceanography in the State of Georgia provides instrumentation to significantly improve the oceanographic research capabilities of the new research vessel Savannah, operated by SkIO as part of the University-National Oceanographic Laboratory System research fleet. The award supports acquisition of sensors to be used in the vessel's surface mapping system and on its CTD system, as well as an uninterruptible power supply. All of these are shared-use capabilities that are available to all funded users of the R/V Wecoma. These improvements will be of substantial advantage to marine scientists during 2002 and future years.
***